Acquisition of an Automated Linkam Heating/Freezing Stage

9406683 Brown This award provides one-half the funding required for the acquisition of an automated heating and freezing stage to be used for the microscopic examination of fluid inclusions in geological samples. The microscope stage will be used in the Department of Geology and Geophysics at the University of Wisconsin, Madison. The University of Wisconsin is committed to providing the remaining funds necessary for the acquisition of the equipment. The research of the Principal Investigator, colleagues, and students require accurate and programmable temperature control of small samples under the microscope. The Principal Investigator's research projects focus on the study of fluid inclusions found in rocks containing gold deposits and are aimed at understanding the chemical and physical processes that operate during the formation of gold deposits. ***